ADAPTS: A Comprehensive Circuit/Timing Simulation Strategy for Integrated Circuits

Rohrer A piecewise linear circuit timing simulator that is robust and efficient in the approximate transient analysis of lumped circuits is being developed. To better simulate the highly nonlinear bipolar and biMOS circuits, a simulation strategy to work with piecewise linear rather than piecewise constant table approximations of nonlinear device characteristics is being explored. Inductance is being included on an equal basis with capacitance. The steady state solution computation is being made more efficient by solving for its conditions explicitly, prior to seeking the transient response that may attain it. Thus, circuit simulation is to be invoked only to obtain successive steady state conditions, but not for intermediate transient time points. To maintain transient simulation computational efficiency, explicit integration strategies that allow the exploitation of both temporal and spatial latency are being used. To insure the stability of explicit integration approximations, the computed steady state conditions are being employed to limit step size. This is intended to overcome the stiff systems problem. The above strategies are being embodied in the SPECS (Simulation Program for Electronic Circuits and Systems) software.